Local Structure in Pure and Substitute Thin Films of High Tc Superconductors: an EXAFS Study

The local structure in thin films of YBa2Cu3O7 (YBCO) and (La Sr)2CuO4 superconductors will be investigated using a series of EXAFS experiments. The behavior of the c-axis Cu(1)-O(4) and the Cu(2)-O(4) bonds as O is removed and reintroduced in the same sample via anneals will be measured to determine how the anharmonicity changes with Tc. Substituted samples will be studied to understand how the local structure and site, Jc, and quasiparticle lifetimes depend on different dopants. This will be clarified with c-axis and a-axis films. More dilute concentrations of Fe, Cu, Ni and Zn in bulk YBCO will be investigated as the low concentration regime may be important for controlling or limiting the quasiparticle lifetime.